NSF Young Investigator

9457573 Bhattacharya This National Young Investigator award is to develop and apply mechanics techniques to understand the behavior of novel modern materials. The purpose is to develop more quantitative models of various fundamental phenomena that are presently viewed in qualitative ways. Shape memory materials will be studies as well as martensitic and displacive phase transformations. ***